The Coherent BREMS Project: Baryon Resonance and Exotic Meson Search

We seek to build upon our earlier work and investigate the nature

of resonant baryon states by probing protons with polarized photons.

The set of experiments forming the first phase of the g8 run took

place in the summer of 2001 (6/04/01 - 8/13/01) in Hall B of Jefferson

Lab. These experiments made use of a beam of linearly-polarized photons

produced through coherent bremsstrahlung and represent the first time

such a probe has been employed at Jefferson Lab. The second phase of

g8 will take place in the summer of 2005 (6/20/05 - 8/31/05).

The scientific purpose of g8 is to improve the understanding of the

underlying symmetry of the quark degrees of freedom in the nucleon,

the nature of the parity exchange between the incident photon and the

target nucleon, and the mechanism of associated strangeness production

in electromagnetic reactions. With the high-quality beam of the tagged

and collimated linearly-polarized photons and the nearly complete angular

coverage of the Hall-B spectrometer, we seek to extract the differential

cross sections and polarization observables for the photoproduction of

vector mesons and kaons at photon energies ranging between 1.10 and 2.25 GeV.

This proposed research has already yielded two PhD and two Master's theses,

as well as one NSF Graduate Research Fellowship. A good part of the funding

for this proposal will provide support for one PhD student.